Travel Support for the 2007 Institute of Electrical and Electronics Engineers (IEEE) International Symposium on Information Theory

The IEEE International Symposium on Information Theory (ISIT) is held yearly at sites
alternating between the U.S. and abroad. The 2007 Symposium will be held at the Acropolis
Congress and Exhibition Center, Nice, France on June 24 to 29, 2007
This proposal requests support for the travel expenses of ISIT participants from the U.S. These
participants would be individuals whose papers have been selected for presentation at the
Symposium, but who lack funds and would not be able to attend without travel support. It is
proposed that the co-chairs of the symposium, Giuseppe Caire and Marc Fossorier make the
awards. The total amount requested is $15,000; this is based on 30 awards (averaging $500
apiece).